Integration, Access and Distribution of Genomic and Molecular Bio-information

Molecular biology and genomic sciences are dependent on bioinformatics for access to data, analyses and knowledge bases. IUBio Archive is an internet information resource for biology data and software. It will be expanded and enhanced to include open-source sequence analysis tools, phylogenetic tools, a framework for analysis tools on a web server and continued archiving of Bionet news. Until now, this has been an entirely volunteer effort. BIO-Mirror is an international collaboration for high-speed world-wide mirroring of public bioinformatics data set using Internet2 infrastructure. In addition to the 30 Gigabytes of DNA and protein sequence and structure data, new additions will include metabolic pathways and structures. The server tool extension will be modular and portable, so that other bioinformatics centers may use them.